U.S. National Committee on SCOPE

9313601 Policansky This award will enable the National Academy of Science (NAS) to continue management of U.S. scientific participation in the international Scientific Committee on Problems in the Environment (SCOPE), a committee of the International Council of Scientific Unions (ICSU). The objectives of SCOPE, which was created in 1969) are: (1) to advance knowledge of (a) the influence of humans on their environment and (b) the effects of environmental changes upon people, their health, and their welfare, particularly those influences and effects that are either global or are shared by several nations; and (2) to serve as a council of scientists acting as a source of advice to governments and intergovernmental bodies on issues concerning the environment. This award would enable members of the U.S. National Committee for SCOPE, whose activities are managed by the NAS, to continue their involvement in international projects coordinated by SCOPE on sustainable development, biodiversity, and the effects of increased ultraviolet radiation on biological systems.